SGER: Robust Multiobjective Active Vision Systems

Abstract

IIS-9911161
Camps, Octavia
Pennsylvania State University
75,000 - 12 mos.

SGER: Robust Multi-objective Active Vision Systems

This is a SGER standard award. Recent hardware advances have rendered active vision a viable option for a very diverse spectrum of applications ranging from MEMS
manufacture to vision assisted surgery. However, in order for active
vision to gain widespread application, the problem of fragility (i.e.
lack of robustness) of systems designed using classical approaches
must be addressed. This project aims to explore the feasibility of solving this
difficulty through a multidisciplinary approach, which brings to bear on
the problem new multi-objective robust control and robust vision tools
that are just starting to emerge in the respective communities. Specifically,
The PIs will use robust feature modeling and identification techniques to
recast the problem into a multi-objective control form that can be exactly
solved using convex optimization techniques. If successful, this effort
will result in an expanded robust active vision framework, capable of
addressing multiple performance specifications and uncertainty. The results
obtained from this research are expected to show that a tight integration of
the control and vision aspects of the problem in a unified framework leads
to substantial improvements both in performance and flexibility.